Collaborative Research: Random matrices, algorithms and large-scale computation

Modern computing depends on randomness. This randomness enters through the data, which is collected from noisy and variable real-world sources, and through the algorithms themselves, which use random sampling to make calculations on enormous datasets fast enough to be practical. These randomized methods now underlie everyday tasks in science and technology, from compressing massive data sets to solving large systems of equations and to finding hidden patterns in data. Despite their widespread use, there is still a less-than complete mathematical explanation of how the randomness in the data and the randomness built into an algorithm combine to shape performance, and judging an algorithm by its absolute worst case tends to predict far more difficulty than actually occurs. This project will build new mathematical theory and practical tools that explain and accurately forecast how such algorithms behave on the large, realistic datasets encountered in practice. The expected payoff is faster, better-targeted computational methods for problems in, for example, genetics, single-cell biology, and the analysis of deep neural networks. The same mathematical tools speak directly to the foundations of artificial intelligence, where the training of large models and the behavior of the optimization methods that drive it are governed by exactly the kind of high-dimensional randomness this project studies. The project will produce freely available open-source software and bring its findings into graduate courses and a summer program for high school students. The investigators will also organize a week-long workshop, extending an established conference series, that will support junior researchers and help grow a community across mathematics, statistics, computer science, and data science.

The research to be developed in this project will advance the theoretical connections among random matrix theory, numerical linear algebra, and randomized numerical linear algebra, using orthogonal polynomials and their associated Riemann-Hilbert problems as a common analytical engine. The work is organized into three linked thrusts. The first will develop asymptotic and computational theory for orthogonal polynomials tied to a broad family of probability measures arising from random matrices. The second will derive explicit, iteration-by-iteration descriptions of how widely used iterative and randomized algorithms behave on structured high-dimensional random inputs. The third will use these results to design algorithms that adapt to the structure of the underlying data and to predict the behavior of related optimization methods more efficiently. Together these efforts will replace pessimistic worst-case rules of thumb with principled, average-case guidance for designing algorithms in data-intensive settings.